Transcriptional Regulation of RNA Polymerase Synthesis

Two models for the transcriptional regulation of RNA polymerase synthesis will be tested. The major site of transcriptional regulation appears to be modulation of the efficiency of a transcriptional terminator, the attenuator, upstream of the rpoBC structural genes. The first model is that the attenuator is regulated by an antitermination system similar to those of phage lambda where the RNA polymerase is stability modified to a termination resistant form at an upstream site. The existence of such a system will be detected by testing whether multiple heterologous terminators can be suppressed when placed in the rpoBC operon. Given a positive result, the modification site will be identified by deletion analysis and oligonucleotide mutagenesis. The factors required for modification will be identified in vitro using depleted or mutant extracts of known antitermination proteins and competition with other antitermination systems. To identify specific for rpoBC, its expression will be uncoupled from the requirement for attenuator suppression, and detector operons will be constructed to allow selection for and screening of mutations affecting attenuator readthrough. The ultimate aim is the reconstitution of the system with purified components. The second model is that coupling of transcription and translation in a gene rplL immediately upstream of the attenuator modulates termination. This model will be tested by using lacZ:rplL gene fusions to control the translation at the 3' end of rplL. The important features of the sequence surrounding the attenuator will then be defined by deletion analysis and site directed mutagenesis. In addition, the factors required for termination will be defined in vitro using purified components. Finally, using partially purified extracts, whether a factor other than RNA polymerase and the ribosome modulates the coupling of transcription and translation will be explored. These experiments will form basis for models defining how transcription of rpoBC is modulated in response to the transcriptional needs of the cell. This research should provide fresh insights into regulation of a gene that is of vital importance to the bacterium E. coli.